CAD/CAM Workcells and Workstations for Mechanical Engineering Laboratories

This project developments a "curriculum model" for the integration of mechanical design and manufacturing. The design process begins by converting a concept into a database using Computer Aided Drafting (CADD). The project equipment is used in the study of computerized manufacturing systems and utilizes the CADD geometry files as the basis 1)for Computer Aided Design (CAD), especially analysis with finite element analysis, and 2)for Computer Aided Manufacturing (CAM) including the creation and execution of Computer Numerical Control (CNC) part programs. Learning progresses from topics courses in mechanical design and manufacturing to a "capstone" semester-long group design project integrating the design and the manufacture of a product. The equipment support for this undertaking includes six (6) CAD/CAM workstations with appropriate peripherals and software; and two (2) manufacturing workcells consisting of a CNC milling machine, a CNC lathe, an educational robot, a vision system, bar code system, manufacturing system components and a Statistical Process Control System. The award is being matched with a greater amount (102%) by the principal investigator's institution.